U.S.-E.C. Cooperative Research: Collaborative Research on Analysis and Implementation of Concurrent Constraint Programming

This three-year award will support U.S.-E.C. cooperative research in concurrent programming, logic programming, compilation, and implementation. It involves cooperation between Saumya Debray of the University of Arizona on the U.S. side, and on the European side, Manuel Hermenegildo of the Polytechnic University of Madrid, Spain; Moreno Falaschi of the University of Padua, Italy; and Giorgio Levi of the University of Pisa, Italy. They propose collaboration on three main topics: task granularity analysis for parallel and distributed implementations of logic programs, development of portable parallel implementations of such languages, and compile-time analysis of concurrent constraint languages. The U.S. investigator brings to this collaboration experience and capability in the target system, &-PROLOG, the underlying parallel implementation. The Spanish investigator contributes a prototype implementation, using the Caslog complexity analysis system, for task granularity analysis. The Spanish side has also been investigating compile-time analysis techniques for Prolog programs with delay primitives. The Italian researchers offer extensive experience with the topics of semantics and of static analyses of concurrent logic and constraint programming languages to the U.S. researcher's use of the &-Prolog system as an implementation and compiler for parallel logic programming languages. The results of the research will contribute to building efficient parallel implementations of high-level, declarative programming languages, in particular, logic and constraint programming languages.